Building Research Partnerships with Audio/Video Conferencing Facilities

9632665 Draayer LaSER, Louisiana's EPSCoR Committee, will build a compressed audio/video (A/V) communication network to enhance the state's research competitiveness. The proposed network will interconnect eight institutions of higher education and the Board of Regents. Specifically, LaSER will establish A/V centers at institutions which provide leadership for its EPSCoR research clusters and centers. The A/V centers will allow researchers to overcome the geographical separation that acts as a fundamental barrier to inter-institutional research collaborations by giving EPSCoR researchers tools for participating in inter-institutional sharing/strategy sessions; and (2) serve as a prototype for an expanded next-generation, statewide research network.